Effect of Global Warming Feedback on Energy Production Strategies

Global Climate Change often abbreviated as Global Change is burdened with complexity and uncertainty. To overcome this obstacle, substantial and increasing human resources are dedicated to the advancement of the understanding of Global Change, and are expected to result in a comparatively rapid increase in knowledge. This, however, will take time. While there is genuine and legitimate disagreement as to when to initiate the mitigative action and what kind of alternative strategies (with no action being one of the alternatives) have to be formulated and a basis for this comparative evaluation has to be established. In this respect, we propose a multivalued index called the Energy Production Index (EPI) that accounts for physical (climatic, biological, etc.) and economic factors. EPI replaces the traditionally used Global Warming Potential (GWP) which is far to simplistic and inadequate leaving out many critical factors such as transition dynamics and global warming dynamics. Methodologies based on systems approaches will be used to develop tools to evaluate EPI and therefore the impact of energy production policy on global change. Suspected global warming processes will be accounted for and their effect compared. Computer-aided tools to be generated can potentially be used for policy formulation, evaluation and negotiation processes.